2008 Industrial Ecology Gordon Research Conference

0802866 (Duchin). These funds are toward support of the 2008 Industrial Ecology Gordon Research Conference, to be held at Colby-Sawyer College, New London, New Hampshire, August 17-22, 2008. A significant portion of the conference is devoted to sustainable energy. Other topics include environmental aspects of nanomaterials and nanotechnologies, as well as sustainable use of materials.